Programmable Applications for Computational Physics: Inte- grating Programming Environments with Direct Manipulation Interfaces

This proprosal is funded under the Research Initiation Awards (RIA) Program Announcement, NSF 88-99. Current computational environments for scientists suffer from various deficiencies. They are generally non-interactive and difficult to program. The provide little in the way of direct manipulation interfaces, domain-specific constructs or facilities for symbolic (non- numerical) programming. This work will build a suite of programmable applications for computational physics in three domains: oscillators, difusion-limited aggregation, and chemical kinetics. These applications will be designed to maximize expressiveness. The will have interactive, learnable interfaces and a domain-enriched dialect of Scheme to provide programmability. This will provide a prowerful and expressive computational media for scientists. The experience will be articulated in termas of broad, practical guidelines for programmable application design. //